XPS: FULL: DSD: A Parallel Tensor Infrastructure (ParTI!) for Data Analysis

This project concerns efficient parallel algorithms and software for
emerging and future data analysis and mining applications, based on an
emerging class of techniques known as tensor networks. Tensors, which
are higher-dimensional generalizations of matrices, are finding
applications in signal and image processing, computer vision,
healthcare analytics, and neuroscience, to name just a few. Yet
despite this demand, there is no comprehensive, high-performance
software infrastructure targeting server systems that may have many
parallel processors. Thus, the overarching research goal of this
project is to design the first such infrastructure. The resulting
prototype will be an open-source package, called the Parallel Tensor
Infrastructure, or ParTI! The broader impact of the ParTI! project is
to make the use of tensors, in a variety of data processing domains,
much easier to do and more widespread.

The ParTI! project will focus specifically on algorithmic and software
support for sparse tensors on single-node multi- and many-core
accelerated platforms. The technical approach relies on a specific way
of representing tensors, referred to as tensor networks. A tensor
network is an efficient approach for representing the structure of a
high-order tensor or tensor factorization. It can used by the data
analyst as a simple, high-level way to express the specific structure
or relationships he or she seeks in the data that the tensor
represents. However, a tensor network is not just a tool for the
analyst; it is also an abstract intermediate form, from which it is
possible to derive algorithms, express and manage parallelism, and
semi-automatically generate tensor processing software. This insight,
combined with well-known data layout and communication-avoiding
parallelization techniques from high-performance sparse linear
algebra, is what will enable a ParTI! for tensor-based data
analysis. The project will show the utility of this approach by
evaluating the ParTI! prototype on real data sets and systems, through
collaborations with government research laboratory and industry
partners.

For further information see the project web site at: parti-project.org